Bioinstrumentation for Crop and Animal Genome Analysis

9318032 Wing The overall objective of this proposal is to acquire instrument resources for a high throughput automated system for plant and animal genome analysis. This enabling technology will be used for genetic map construction, diversity analysis, pedigree construction, analysis of complex traits, map-based gene cloning and genome database development. The requested system will support the multidisciplinary research of seven major user research groups and 8 additional research laboratories. The instrument resources required for the automated system include; a large capacity freeze dryer for sample preparation and storage, a fluorimeter which can be used in a 96 well format with output connected via computer for automated sample dilution, a robot for automated liquid handing and photometric measurement tasks, dedicated PCR instruments for amplification of DNA markers, an automated DNA sequencer for analysis of amplified polymorphic DNA and for acquisition of microsatellite, cDNA and other marker sequences, a gel image for data capture and storage, and a UNIX Workstation for data analysis and genome informatics. The instrument resources will be housed in the 2,500 square foot Laboratory for Crop Genome Analysis which is located in a new Crop Biotechnology Center at Texas A&M University. The Crop Biotechnology Center will provide for the maintenance and operation of the instrument resource. The principal investigator, Dr. Rod Wing, will oversee the operation of the automated genome analysis system. Day-to- day operation and scheduling of the genome analysis system will be carried out by a staff scientist provided through the Crop Biotechnology Center.